RUI: Automorphic Summation Formulae

This project explores the relationship between moments of the Riemann zeta
function and automorphic forms. Motivated by recent conjectures on the
moments, Professor Beineke plans to continue development of a new class
of automorphic summation formulae in order to establish connections
between the 2k-th moment of the Riemann zeta function and Eisenstein
series on GL(2k). Initial results in the case where k = 1 have been developed
by Professor Beineke in collaboration with Professor Daniel Bump at
Stanford University.

This is a project in number theory, one of the oldest branches of
mathematics. The foundations of number theory lie in the study of the
positive integers and finding patterns in these integers. A function of
interest in number theory, which may provide information about patterns
of prime numbers, is the Riemann zeta function. Results about this function
could have applications to cryptography and Internet security. Professor
Beineke's project investigates other number-theoretic objects called
automorphic forms, and their possible connections to average values of
the Riemann zeta function. These connections were initially motivated by
results stemming from Random Matrix Theory, a subject originally
used to develop models in experimental physics.